GeoFutures: conference-based mentoring

GeoFutures provides educational resources for students interested in pursuing a career in geosciences through a conference-based mentoring program. Students will engage with the multitude of disciplines and career pathways available in geosciences that are required to address the emerging needs of the 21st century. GeoFutures forms an alliance among geoscience professionals to help recruit, engage students in innovative professional development activities, and provide rigorous support and training for students to ensure continued interest and involvement in the geosciences.

Primarily recruiting students from within NSF’s Geoscience REU sites, the GeoFutures program will provide students with pre- and post-meeting training that will prepare them to understand how to engage in a national research conference. Pre-meeting activities will provide students with an introduction on navigating a scientific meeting and networking with geoscientists in attendance. Meeting activities will provide students with an introduction to original research being conducted in the geosciences and examples of career pathways that can be engaged in as a professional geoscientist. Beyond providing students with guidance on how to pursue academic and professional careers in geoscience, GeoFutures will help participants understand how their unique talents and perspectives can contribute to a scientific workforce that looks to address the emerging needs of 21st century geoscience research.